2003 Dagstuhl Seminar on Deduction

ABSTRACT
The International Conference and Research Center for Computer Science in Dagstuhl regularly organizes scientific workshops, called Dagstuhl Seminars. These are not a fixed series of workshops, rather are individually arranged. A few scientists are responsible for each seminar, and they must apply to the Scientific Directorate of the Center for a seminar to be held. Only proposals with high scientific merit are accepted. The 2003 Dagstuhl Seminar on Deduction was proposed by an international team of researchers led by Deepak Kapur, University of New Mexico, Andreas Podelski, Max-Planck-Institut fuer Informatik, and Andrei Voronkov, University of Manchester (UK), and is being held April 21-25, 2003. Fifteen researchers and students are participating in the workshop.